The Design and Analysis of High-Speed Logic Systems with Distributed Error Correction

This research seeks to develop system design methods which permit and encourage designers to incorporate the necessary distributed error correction throughout any digital system. A new systematic distributed design procedure, employing error-correcting codes and a well-defined clustering technique, incorporates error correction directly in the logic design. System models describing internal soft errors and an analysis procedure yielding the probability of error performance are developed. An incremental probability analysis is used to determine the proper gates for sharing and when compromises between performance and complexity are required. The research efforts involve developing automated design tools for a complete clustered design and refined analysis techniques so that the best trade-offs between implementation complexity and error protection can be quickly achieved. In addition, simplified analytical methods are required for guiding the design process and estimating the performance of modified designs.